Single-Cell Resolution of The Genetic Basis of Regulatory Evolution in Threespine Stickleback

Most variation in traits of organisms arise from a combination of interacting genetic and environmental factors. These effects often occur through changes in how genes are turned on and off, instead of changes to the proteins themselves. A central question in biology is understanding how genetic differences in these gene regulatory controls are influenced by the environment to generate biological differences that allow organisms to adapt to new environments. This project investigates that question by studying the threespine stickleback, a small fish that has repeatedly and independently adapted from marine to freshwater habitats largely through regulatory changes of genes. Using cutting edge genomic and computational approaches, this research will determine which cell types respond to environmental shifts, and how the same genetic variants can produce different outcomes in different environments. The work serves the national interest by promoting the progress of science through the creation of new fundamental knowledge of how organisms adapt, while also producing broadly useful genomic resources. In addition, the research benefits the nation by advancing human health. Most disease-associated genetic variants in humans are in regulatory regions, and the genes studied here have human counterparts implicated in hypertension and metabolic disorders. The project supports education and workforce development through hands-on training of graduate and undergraduate students in genomics and genetic engineering, integration of project data into an undergraduate computational genomics course, development of gene-regulation teaching modules for high school students, and broad recruitment of individuals to participate in science. Finally, open-source computational pipelines developed through the project will be disseminated to the broader research community to advance similar research.

This project will generate one of the first cell type-resolved maps of both expression and chromatin accessibility quantitative trait loci (eQTLs and caQTLs) in a vertebrate. Using F2 mapping families derived from crosses between marine and freshwater threespine stickleback fish reared under contrasting high- and low-salinity conditions, the team will apply single-cell RNA sequencing and single-cell ATAC sequencing to map regulatory variants within individual cell types and to identify genotype-by-environment interactions. The complementary single-cell datasets will be computationally integrated, and co-localization and mediation analyses will test whether chromatin accessibility mediates genetic effects on gene expression. The research will also quantify the relative contributions of cis- and trans-acting mechanisms across cell types and environments. Targeted resequencing of wild marine and freshwater populations will test whether regulatory variants identified in the laboratory show signatures of parallel selection in nature, linking mechanistic and evolutionary genetics within a single framework. Finally, candidate regulatory elements will be functionally validated using CRISPR-based genome editing and reporter assays to establish causal links between sequence variants, chromatin state, and environment-dependent gene expression. The research advances biotechnology by combining high-throughput single-cell genomics, computational multi-omic integration, and CRISPR genome engineering, and will yield a publicly available cell type- and environment-resolved regulatory QTL resource and computational tools to be used by other researchers.